Calculator Discovery Workshops

Southwestern area mathematics faculty are attending one of two workshops at the University of New Mexico in the summer of 1991. Thirty faculty members are participating in each one-week workshop. The participants are being provided with a TI-81 graphing calculator and a HP-28S symbolic graphing calculator and are given "hands-on" instruction in their use. The emphasis is on the use of these machines as laboratory instruments to gather data and generate hypotheses. Discovery via visualization is the central theme. A newsletter including descriptions of post- workshop experiences of participants will be distributed two times in the year following the workshops and presentations will be made at regional professional meetings.